Accurate Doppler Accelerometry of Stars

Dr. McMillan will continue and expand his program of radial velocity measurements of solar-type stars to search for gravitational perturbations by planets. Observations on this program began in 1985, and uniformly calibrated observations date from late 1986. Continuation of the observational project will make the data series more sensitive to planetary perturbations. More stars of near-solar type will be added to the observing list, which will increase the statistical weight of the survey. Information about the orbits and masses of planets orbiting stars other than the Sun would broaden our perspective on the parameters of our own Solar System and thereby help generalize and refine theories about the formation of stars and planetary systems. Tests have shown that Dr. McMillan's instrument has the stability and the sensitivity to detect the reflex acceleration induced by a Jupiter- mass planet on a solar type star, if the orbit of the planet has a period less than 12 years and has a favorable inclination to our line of sight. At the current level of accuracy, this is the longest time base of all radial velocity programs in the United States, and it provides the most observations of any such radial velocity program in the world.